Manipulating Matter with Light

9876929
Prentiss
The topic of this research is atom optics that can be dynamically reconfigured on time scales as short as a microsecond. The goal of the research is to increase the availability and simplicity of the appropriate atom optical elements, which will allow a number of new experimental possibilities. These include uncertainty limited atomic distributions with widths less than 10 nm, time dependent mirrors that compress atoms in both position and velocity space, atom interferometers with areas greater than one cm by one cm, and controlled collisions between atoms confined in potentials smaller than their scattering length.